Operational-Level Dynamic Price Competition in the Service Industry

This research project studies the dynamic price competition of service products such as airline seats, hotel rooms, Internet bandwidth, and concert/sport event tickets, etc. These service products are considered perishable because (a) the quantity is fixed; (b) the inventory can neither be replenished nor stored; and (c) unsold products have little salvage value. Due to the perishable nature of these products, a service retailer often has a strong incentive to dynamically adjust product prices based on the current inventory and the remaining time of sale. This approach allows the retailer to best meet the demand with the limited supply and to maximize profit. The competition aspect of dynamic pricing is especially relevant to the emerging e-commerce. The electronic market not only allows service retailers to update prices in real-time with minimal cost, but also allows consumers to compare easily the quality and prices of similar products. Motivated by these characteristics, this project proposes to study a set of quantitative models of dynamic pricing in an oligopolistic environment. In each of these models, the investigator will study the optimal policy, the Nash equilibrium, and heuristic policies.

The goals of this project are: (a) providing tools that would help service retailers to maximize the profit by dynamically updating product prices in real-time; (b) exploring the market equilibrium in the dynamic pricing environment; and (c) providing commercial technologies that would improve market efficiency and increase overall social welfare. In addition, this project provides funding for training Ph.D. students in a new and rapidly expanding area of critical technology and commerce, and for enriching undergraduate and graduate education through course-work of research results.